Programs on Critical Problems in Physics, Astrophysics and Biophysics at the Aspen Center for Physics

During the summers, the Aspen Center for Physics will serve as a
meeting ground where theoretical physicists and astrophysicists can gather
to exchange ideas in such areas as elementary particle physics,
condensed matter physics, and astrophysics. This exchange of ideas is
crucial if there is to be vigorous progress in these fields, and the Aspen
Center is exceptionally effective in fostering this exchange.

During the winters, the Aspen Center will act as the host for
winter conferences in which the latest developments in elementary particle
physics, condensed matter physics, and astrophysics will be reported and
discussed.

Support for the Aspen Center for Physics will be provided through
the NSF Divisions of Astronomical Sciences, Materials Research, and
Physics.